Problems in Differential and Algebraic Topology

DMS-0306616
Lowell E. Jones

Many problems in "higher dimensional" topology have been reformulated
in terms of one or more of the following theories: homotopy theory;
algebraic K-theory; surgery L-theory; stable pseudoisotopy theory.
In an effort to better understand the latter three theories, Jones
(in collaboration with F.T. Farrell) has formulated an "Isomorphism
Conjecture" for each of these three theories. For example, the
Isomorphism Conjecture for algebraic K-theory gives a simple recipe
for computing the algebraic K-groups for the integral group ring of
a group G in terms of the algebraic K-groups for the integral group
rings of all the infracyclic subgroups of G. (A group is "infracyclic"
if it is a finite extension of a cyclic group.) Quite a bit is know
about the algebraic K-groups for integral group rings of infracyclic
groups; so the truth of the preceeding conjecture would help considerably
in understanding the algebraic K-theory of all integral group rings.
As part of this proposal, Jones intends to continue working towards
verifying the Isomorphism Conjecture for algebraic K-theory of the integral
group ring of G, under the condition that the group G acts properly,
discontinuously by isometries on a complete, Riemannian manifold which
has non-positive sectional curvature values everywhere.

Mathematicians study the structure of spaces by trying to find the
"genetic code" for each space. The "genetic code" for a space usually
comes in the form of an algebraic gadget associated to the space;
typically there is a simple recipe for constructing the algebraic gadget
from the space. The hope is that two spaces having equal or congruent
"genetic codes" should be equal or congruent as spaces. One of the first
algebraic gadgets to be associated to a space is called the "fundamental
group" of the space. The French mathematician Henri Poincare introduced
this idea about a 100 years ago. The fundamental group of a space is
certainly an important ingredient in its "genetic code", but there are
examples of many different spaces which have the same fundamental group;
in these cases the fundamental group is not a complete "genetic code" for
the space. About 50 years ago the mathematician Armand Borel (of the
Institute for Advanced Study in Princeton, N.J.) conjectured that for an
important class of spaces (called "aspherical spaces") the fundamental group
does give the complete "genetic code" for the space; that is, two aspherical
spaces with the same fundamental group are forced to be the same space. Jones
has made some progress towards proving Borel's Conjecture, and will continue his
work in that direction.